Partitioning of Tephra in Submarine Eruption Columns

Particles of similar size and shape, but different bulk densities fall through a fluid with different terminal velocities. While this applies to pyroclastic particles falling through air, the affect is accentuated in water, where lower terminal velocities tend to produce a higher degree of hydraulic organization in falling particles. These relationships, plus experimental studies relating grain size, density and terminal velocity of volcanic particles, were used by Fiske and Cashman to formulate a model that helps to explain many textural and stratigraphic relationships of deposits formed by fallout from submarine eruption columns. This project will test the model through a detailed study of Mio-Pliocene submarine volcanic deposits now exposed in the Shirahama Formation, Izu Peninsula, Japan. It will involve the collection of lithic fragments through single stratigraphic units, and shape analyses of these at either Princeton or Rutgers. Collaborators are R. S. Fiske (Smithsonian Institution) and I. Kushiro (U. of Tokyo)